GREPSEC IV: Underrepresented Groups in Security Research

This proposal provides funding for the fourth GREPSEC: Underrepresented Groups in Security Research workshop, which will held in May 2019, in San Francisco, CA. This day-and-a-half-long workshop intended for women and underrepresented minorities in computer security and privacy, will be co-located with the Institute of Electrical and Electronics Engineers (IEEE) Computer Society's Security and Privacy Symposium, the premier conference in security.

The broad goal of the workshop is to increase the number of women and underrepresented minorities in computer security research. Security is a wide field, encompassing network security, operating system security, language-based security, forensics, privacy, as well as legal and policy issues. The goal of the organizers is to encourage graduate and highly motivated undergraduate students who are female and from underrepresented groups to choose security as their field of specialization. Their approach is to show the wide range of problems within the field and how women and underrepresented groups are working towards solving those problems with talks and interactive participatory sessions.